Collaborative Research: Predictive Infotronics Agent for Integrated Product Life Cycle Support

This collaborative project brings together the Industry/University Cooperative Research Center (I/UCRC) for Intelligent Maintenance Systems (IMS) involving the University of Wisconsin-Milwaukee and the University of Michigan with the Technical University Berlin to study "Predictive Infotronics Agent for Integrated Product Life Cycle Support".

The I/UCRC is developing condition-based maintenance, which senses and assesses the current state of the equipment in order to predict performance and avoid possible downtime. The Technical University Berlin is developing a life cycle unit, which used life cycle data to design a life cycle board, which integrates sensors and data processing to actuate remedial actions to prevent failure. The condition based maintenance approach requires both power and significant computing capability. The life cycle unit approach is more equipment specific and the computing is encapsulated along with the sensor generally requiring only low power. The project goal is for the universities to work together to merge the beneficial aspects of both approaches into a single more versatile system.